Collaborative Science Workshop and Interpreter Program for Youth Ages 12-15

This project is a collaboration by the Children's Museum, Museum of Science, and Franklin Park Zoo designed to provide hands-on science activities and increase interest in science as a career for children in grades 6-8 who attend community agency after school programs. Groups of 20-25 students will attend 8-week courses at each institution, rotating to all three during the year. After completing the courses, selected students will become interns for summer training and work at the institutions. The goals of the project are to offer engaging science to underserved children and motivate them to further study; to build a bridge to community groups from the three institutions; to bolster science programs at community centers through training their staff; and to create a replicable model for other science centers, children's museums and nature centers to work with community agencies and to involve parents in their children's activities. Videotapes, to be produced by WGBH-PBS will be distributed to science centers: tapes will document finding effective ways to work in the children, the particular experiences of the three institutions, and the children's experiences with and attitudes toward science. A summer institute will be held for museum professionals from other institutions.//